Visualization Studies of Heat and Mass Transfer in Forced Flow He II

Title: Visualization Studies of Heat and Mass Transfer in Forced Flow He II

PI: Steven W. Van Sciver, Florida State University

Proposal Number: CTS-0001411

Abstract

This work involves the application of flow visualization and particle image velocimetry (PIV) techniques to studies of heat and mass transfer in He II. The purpose is to obtain the capability to investigate microscopic scale thermal fluid issues in He II, so that the fluid can be better utilized as a coolant in applications. The effort will first focus on techniques to introduce suitable neutral density particles into experiments with a He II counterflow/forced flow channel. Neutral particles to be investigated include solid H2/D2 and hollow glass microspheres. Once particle seeding techniques have been developed, PIV experiments will investigate the microscale fluid dynamics of the He II channel. The experiments will be performed in a cryostat equipped with optical access. If successful, this will be the first demonstration of PIV in He II and the only particle imaging study in counterflow or forced flow He II. It will also be a clear indication of the value of PIV for cryogenic thermal fluid studies.